Fundamental Organometallic Transformations

Joseph Templeton, Department of Chemistry, University of North Carolina at Chapel Hill, is supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program to continue his studies of fundamental reactions of ligands coordinated to transition metals. One focus of this grant involves tungsten complexes with coordinated carbynes or carbenes. Complexes such asTp'I(O)W=C(CH3)(OSiR3), where Tp' represents a tris-pyrazoyl borate, are unusual examples of "Fischer-type" carbenes bound to a high oxidation state metal. Studies will probe the bonding and reactivity of these species. Another focus of the grant is the synthesis of organometallic complexes of Pt(IV) relevant to carbon-hydrogen bond activation.

Fundamental studies of the electronic structure and bonding of these ligands provide insight into important heterogeneous catalytic processes. In addition, graduate students and postdoctoral associates will learn valuable skills in synthesis, characterization and reactivity studies.